1990 International Conference on Lattice Theory; Tallahassee, Florida; October 8-12, 1990

The Supercomputer Computations Research Institute of Florida State University will host the physics conference Lattice '90 in Tallahassee during 8-12 October 1990. This annual conference has rotated between the U.S. and Europe for the past six years, and is the main international conference for lattice field theory. In lattice field theory, one attempts to understand theoretically the strong nuclear interactions of the elementary particles by making an approximation in which the continuum of space is replaced by a discrete lattice of points. Topics that will be extensively discussed at this conference include lattice computations of the masses of strongly-interacting particles, the potential between quarks, weak nuclear processes, the phase transition in which quarks become free, and new developments in algorithms and special purpose machines. The annual Lattice conference regularly draws about 200 of the most outstanding researchers in the field, and provides them with an important opportunity to exchange ideas in an area of research which has become a major component of theoretical elementary particle physics.